GPS Investigation of the Active Southern Taiwan Fold and Thrust Belt

9725570 Wiltschko The dynamics of fold and thrust belts has received considerable theoretical and field attention due to their role in collision and mountain-building. A leading model is based on the idea that a fold/thrust system maintains a specific wedge taper by deforming internally. Rigorous test of the wedge model requires data on the motion of thrust belt structures. This project takes advantage of the high rate of growth of the Taiwan arc-continent collision to study fold and thrust belt motion, principally by use of extensive GPS data. Results are expected to illuminate relative roles of folding and faulting both at the thrust front and across the belt, document the uplift and displacements of structures and to help discriminate and geodynamic models, including the wedge model for fold and thrust belts.